Evolution of Gene Families in Gram-Negative Bacteria

Anthranilate and p-aminobenzoate synthases in selected gram-negative bacteria will be studied. These paralogous enzymes are often encoded by a four-member gene family, two large alpha-subunit genes and two small beta-subunit genes, but there is conclusive evidence that some non-enteric, gram-negative bacteria as well as Bacillus subtilis use a single beta-subunit for both enzymes. Fluorescent pseudomonads, on the other hand, are unique so far in having duplicate anthranilate synthase genes. Both genetic and biochemical experiments are planned to establish the physiological function and regulation of the anthranilate gene pair that is not involved in tryptophan synthesis. We will also examine suppressed mutants of the tryptophan-specific enzyme in which the second anthranilate synthase gene pair may substitute for the first. The DNA sequence of the second anthranilate synthase shows a 23 bp overlap between the alpha- and beta-subunit genes. Preliminary experiments indicate that this configuration allows coupled translation of the two genes. If confirmed, these results will extend appreciably the distance over which coupling can occur, indicating the possible regulatory significance of similar-sized overlaps in organisms as diverse as B. subtilis and coliphage lambda. Long-range goals are to use the anthranilate and p-aminobenzoate family to examine the control of genes involved in secondary metabolism in the fluorescent pseudomonads, since at least two important secondary metabolites are believed to require their participation.